CSR PDOS/SGER: File System Trace Repository

The need to have a repository to store traces of file system data was deemed exceptionally important by the community. This proposal is an important community need for researcher in operating systems, storage systems, and distributed systems and will augment the industry efforts from the research community who can manage and maintain the repository.